Brownfield Development: The Implications for Urban Infrastructure

9526029 McNeil For both older and newer cities, brownfields industrial sites which are often vacant because they do not meet the strict remediation requirements of the Superfund law, are both a resource and a liability. Brownfield sites represent an opportunity to build the tax base and rejuvenate decaying infrastructure and depressed communities. With ever increasing pressures on existing infrastructure from both development and age, and the opportunities for more rational approaches to site redemption, brownfields and their associated infrastructure offer an attractive alternative to greenfield sites. Particularly since increasing restrictions and public opposition to greenfield development slows down the development process. The interdisciplinary three year research program addresses the implications of brownfield development for urban infrastructure and the impact of urban infrastructure on brownfield development. The research will focus on information management and rational decision making using the City of Pittsburgh as a case study. ***